NSF Young Investigator

ABSTRACT CTS-9457108 Cecilia Richards Turbulent dispersion of droplets in turbulent jets, and particle behavior in two-phase reacting flows, will be experimentally investigated. Dr. Richards will implement various design components in her teaching of undergraduate and students. ***